Japan Long-Term Research Visit to Kyoto, Japan

This award will support a six-month research visit by Professor Mostafa A. Foda of the Department of Civil Engineering, University of California, Berkeley, to the laboratories of Professor Tetsuo Sakai, Department of Civil Engineering, Kyoto University, and Professor Yoshi-Hiko Maeno, Department of Civil Engineering, Maizaru College of Technology, Japan. The research will focus on coastal engineering and porous media dynamics, in particular the generation mechanisms of multiphase wave in fluid-filled porous media. Experiments will be conducted on two of the most promising mechanisms of generation, one being relevant to earthquake shaking of soil masses; and the other to the phenomena of seabed lique- faction by ocean waves. The results are expected to increase our understanding of the interaction of seabed, ocean waves and earthquakes.